CEDAR: Operation of High Latitude Optical Aeronomy Observatories in Support of CEDAR Program

The Longyearbyen Observatory in Svalbard is a mainstay in optical experiments of the polar region. Observations from Longyearbyen are expected to play a major role in the CEDAR initiative. However, the observatory itself is small and already overcrowded. As the CEDAR science campaigns become more frequent pressure for the limited space will be further exacerbated. This award facilitates the use of the Longyearbyen Observatory in Svalbard by visiting experimenters. In particular, approximately 400 square feet of badly needed additional space to the existing observatory will be provided. Furthermore, transformers and surge protection devices will be installed to provide conditioned 120 volt power to the instruments of the visiting U.S. scientists.